RUI: CSUMS: Research in Scientific Computing in Undergraduate Education (RESCUE)

Gottlieb
DMS-0802974

The overall goal of this project is to prepare undergraduate
mathematics students for, and engage them in, a sustained
research experience in computational mathematics. The PI and her
colleagues at the University of Massachusetts Dartmouth integrate
research in scientific computing into the undergraduate
curriculum by designing research-based courses from the Freshman
level upwards, and engaging upper-level students in a sustained
and significant research experience. The project creates an
integrated undergraduate research experience by engaging students
in research from the introductory level through graduation,
completely embedding research into the undergraduate curriculum.
The essence of this approach is to mentor students into genuine
research problems and research methods in computational science,
beginning with senior high school students for recruitment
purposes, freshman and sophomore students for orientation to
research in computational science through carefully selected
research topics, and culminating in major senior undergraduate
research projects where an expected outcome is professional
presentation at a SIAM, AMS or MAA meeting, and preparation of a
publishable research paper. An integral part of this project
involves the identification, training, and support of students
from groups not normally well-represented in scientific
computing, to encourage and support diversity in this field.
This project engages students in an integrated program that leads
them from the use of computational tools in course work to the
development and use of computational tools in research projects.
It serves as a model for a curriculum that stimulates research
activity in computational science as an integral part of a
mathematics degree program, from the freshman year onwards.

The overriding goal of this project is to include and
integrate research activities into the undergraduate mathematics
curriculum. This program revolutionizes the teaching of
mathematics at the University of Massachusetts Dartmouth by
including research-based activities in courses across the
undergraduate mathematics curriculum. This project has a
significant impact on the structure of undergraduate courses by
introducing research seminars from the freshman year, linking
students across year levels in common goals and cohorts, and
stimulating new research-based courses in computational science.
Furthermore, outreach to high school students and their
mathematics teachers has an impact on awareness of the field of
computational mathematics and careers in computational science.
The approach of this project recognizes that students can be
attracted to and prepared for a career in scientific computing by
engaging in genuine research-based activities throughout their
undergraduate education. The benefit of this approach is that it
builds a stronger and more diverse population of computational
scientists by attracting talented students to the field of
scientific computing and training them in the tools and analysis
of numerical methods for solution of various real-world problems.
The project is supported by the MPS Division of Mathematical
Sciences, the MPS Office of Multidisciplinary Activities, and the
EHR Division of Undergraduate Education.